CONFERENCE: 1997 Summer Neuropeptide Conference: June 22-26th, 1997: Key West, Florida

This award supports participation of graduate and postdoctoral students to present their research at the Summer Neuropeptide Conference. Neuropeptides are molecular compounds that are known in many cases to have effects on modulating the activity of the brain and behavior. The meeting is not huge, and so it represents an excellent opportunity for young scientists to make important contacts with other scientists doing related work, to exchange the latest information on theories and techniques, and to develop new collaborations, including international ones. The NSF joins several other donors and agencies in giving partial support to this meeting, with an emphasis on the NSF mission of promoting infrastructure to develop the careers of young scientists. The travel awards will have a substantial impact on the careers of the young scientists who are able to attend.